SGER: A New Method for Landmine Detection and Minefield Mapping

0225424
Brown

This proposal is being submitted under the Small Grants for Exploratory Research (SGER)
program and it focuses on answering critical feasibility questions pertaining to a new
technique for the detection and location of buried landmines and unexploded ordnance. The
subject technique comprises a standoff, ground based, pulsed radar that launches
electromagnetic energy into the Norton surface wave mode of propagation. The Norton
surface wave travels along the air-ground surface at the speed of light in a vacuum and
exponentially decays into the ground due to the losses in the ground. By selecting the
frequency properly, sufficient energy will be scattered by the landmine back along the
same propagation path and then received by the radar. This energy is usually insufficient
to be above the system noise level so return pulse averaging is carried out using coherent
techniques. If N return pulses are averaged coherently the signal-to-noise power ratio
will increase by a factor of N rendering the signal scattered from the landmine
detectable. Location of the mine is achieved by using the pulse width to accomplish
resolution in the range coordinate and the radar antenna to achieve resolution in the
azimuth angle. In order to achieve area coverage and the best possible angular resolution
close to the antenna, it is proposed to simultaneously employ both beam steering and near
field focusing techniques. The critical study, to establish feasibility, is the
determination of the highest operating frequency for which the Norton surface wave can
propagate on the surface and penetrate sufficiently deep to detect antipersonnel and
antitank mines. It is also proposed to develop the appropriate radar range equation for
the Norton surface wave, investigate techniques for maximizing the coupling of the radar
antenna to the Norton surface wave, determine the variation of soil conductivity and the
radar cross section values for typical nonferrous landmines, and investigate the maximum
range and angle resolution or the acceptable frequencies of operation. Having answered
these questions, it should be possible to establish the viability of such a radar subject
only to the need to compute the effects of surface roughness and buried debris on the mine
scattered signal strength, i.e., the low signal-to-clutter ratio problem.